Laser Programmed Conducting Polymers

It is proposed to develop ultraviolet laser induced conductivity into a viable technology for the semiconductor industry, and to investigate the mechanisms for these large conductivity increases in organic materials. An investigation of the crucial laser and materials parameters necessary to optimize laser induced conductivity in polymers will be undertaken. Initially, a hierarchy of simply devices such as resistors and vias will be fabricated by direct laser irradiation of polymers. Later, integrated structures such as ROM's are of interest. A technique has been developed to produce sub 100 nm lines in polyamide by direct laser patterning. It is proposed to investigate the electrical properties of such structures.